Community-Based STEM Pathways to Develop Idaho Professional Educators

This project serves the national need for high-quality preparation of secondary STEM teachers in rural schools. The project supports 16 Teaching Fellows with mathematics, science, engineering, or computer science degrees as they earn a Master’s in Teaching degree and an Idaho 6–12 teaching certificate through Boise State University. After certification, Teaching Fellows will receive four years of annual salary supplements and ongoing support for their teaching in high needs school districts. This project is designed to attract STEM professionals already living in rural areas and to support them through a new place-based residency program. The program integrates coursework, classroom-based apprenticeships, and support from experienced mentor teachers. In addition, Teaching Fellows receive extended induction support during their first years of teaching to improve instruction and build leadership capacity around STEM learning.

This project at Boise State University includes partnerships with rural high-need school districts across Idaho (including Caldwell, Kimberly, Emmett, Kuna, Burley, and Wilder), as well as the Idaho Business for Education, the Idaho Workforce Development Council, and the Idaho STEM Action Center. Project goals include: (1) recruiting a geographically varied cohort of 16 well-qualified Teaching Fellows (TFs), (2) ensuring TFs develop the competencies, teaching strategies, and professional dispositions needed to thrive in rural classrooms, and (3) providing high-quality induction support that promotes effective teaching and leadership. This project will be iteratively evaluated. Evaluation of the project will be guided by the following evaluation question(s): (a) How effective is the fellowship program in supplying STEM teachers to rural, high-need schools? and (b) Which certification and induction practices are most associated with TFs’ use of effective teaching strategies?. The results of this project will be disseminated to help enhance the field. This Track 2: Teaching Fellowships project is supported through the Robert Noyce Teacher Scholarship Program (Noyce). The Noyce program supports talented STEM undergraduate majors and professionals to become effective K–12 STEM teachers and experienced, exemplary K-12 teachers to become STEM master teachers in high-need school districts. It also supports research on the effectiveness and retention of K–12 STEM teachers in high-need school districts.